CRI: IAD: Digital Imaging Laboratory at Dartmouth

We propose to build a Digital Imaging Laboratory that will support research, teaching and cross-disciplinary collaboration at the boundary of Art, Engineering, Law and Science. Four primariy research projects will be supported by this Laboratory: (1) Distinguishing between real and computer generated images and video; (2) Building compact and intuitive representations of human motion; (3) Art authentication; and (4) Lighting art. The Laboratory will also be made available to students enrolled in the newly created Digital Arts minor. And, faculty and students across the Dartmouth campus will be able to take advantage of the Digital Imaging Laboratory. Progress reports for this project will be regularly updated at www.cs.dartmouth.edu/farid.